Set theory: Combinatorics and Large Cardinals

9970536
Mitchell
The main topics of Mitchell's investigation concern the core model,
particularly its structure and existence in the vicinity of a Woodin
cardinal. The structure of the core model is known far above a Woodin
cardinal, but its existence depends on the existence of a measurable
cardinal lying above the desired model. Thus there is no core model
in the important case when a Woodin cardinal exists, but nothing
larger. Preliminary results suggest, however, that some of the core
model structure remains. Mitchell will attempt to understand this
structure better. He will also study related topics involving closed,
unbounded sets and the existence and structure of the core model for
larger cardinals. Larson will study Ramsey properties of countable
ordinals and of larger ordinals that are not small finite powers of
cardinals.
Set theory is usually considered the foundation of all mathematics,
so studies of this kind are in a sense exploring the limits of
mathematical possibility. The core model forms, as its name implies,
the rigid foundation of the universe of sets and is the major tool for
studying and validating axioms that extend the power of set theory and
hence of mathematics. The ordinals form the skeleton of the universe
of sets, and understanding their combinatorial properties are vital to
understanding the universe of sets.
***